Purchase of a Flow Cytometer for the Large-scale Assessment of Biogenic Particles in Estuarine and Coastal Systems

This project will provide for the acquisition of a standard bench top flow cytometer with argon laser illumination, five parameter analysis, and cell sorting capability. Flow cytometry is an important tool for interdisciplinary research on the dynamics of microbial populations and biogenic particles that participate in the cycling and flux of major elements in aquatic ecosystems of the land-sea margin. Flow cytometry was originally developed as a tool to analyze individual cells or biological particles in cellular biology and clinical research. It has more recently found wide applications in aquatic biology, because it can provide a level of temporal and spatial resolution of the abundance and characteristics of biogenic and non-biological particles in aquatic systems that no other current technology can match. This level of resolution is currently needed to complement largescale models of elements cycling in estuaries and oceans, where the distribution and characteristics of biological particles are the key factors that determine the fats and flux of essential chemical components. Thus, flow cytometry is no longer a technology restricted to clinical studies, but can profitably complement other techniques routinely used in aquatic ecology and biochemistry. This proposal represents an attempts to expand the use of flow cytometry in the study of the density, distribution, cellular characteristics, taxomic composition and trophic interactions of biogenic particles in estuaries and continental shelf ecosystems of the middle Atlantic region. The instrument will reside at the Horn Point Environmental Laboratory which has made a major commitment to the study of plankton dynamics, physical oceanography, and physical-biological interactions in estuarine and marine ecosystems. The instrument is extremely versatile and will be used in laboratory-and ship-based studies as well as in laboratory course work. Operation is relatively easy and user-friendly, makin g it an ideal tool not only for ecological research, but also for education.